NSF Young Investigator

Technical abstract: A study of the magnetic properties of ultra-thin rare-earth films and sandwiches will be conducted. The issues which will be addressed will be the surface magnetic reconstructions and the indirect exchange coupling across non-magnetic spacer layers such as ytterbium. The films will be grown in an ultra high vacuum chamber and characterized in-situ with low energy electron diffraction, Auger electron diffraction, angle resolved photoemission, spatially resolved spin polarized secondary electron spectroscopy, and magneto-optic Kerr effect. Ex-situ characterization of the samples will include extended x-ray absorption fine structure, vibrating sample magnetometry, x-ray diffraction, and magneto-resistance measurements. The change of structural, magnetic, and transport properties for various thicknesses, preparation temperatures, substrates, and cap layers will be investigated. A more complete understanding of the surface and interfacial magnetic properties of the rare-earths is sought in order to find applications for their unique properties in non-volatile magnetic storage applications and magnetic sensor technology. Non-technical abstract: Magnetic films are presently the mainstay of modern data storage devices such as hard disk drives and tape back up system. The films are used both as the active storage media as well as in the heads which read the data. Two main examples are read-write rnagneto-optic disk dnves, which use an alloy of transition metals (iron and cobalt) together with a rare earth (ytterbium) to form a film with magnetic domains which represent the data) pointing perpendicular to the surface and layered pickup-heads made of magnetic transition metals which have a large resistance change when they pass over the various magnetic patterns on a storage tape. In the present study, the magnetic domain properties of very thin rare-earth materials and lay ered structures will be investigated to determine the suitability of these materials for future generations of magnetic storage media.